Algebraic Geometry, Commutative Algebra, and Algorithmic Methods

David Eisenbud will work on three groups of problems from commutative
algebra and algebraic geometry: The use of exterior algebra methods
in projective geometry and their extension to toric geometry; the study
of infinite free resolutions; and the study of codimensions of determinantal
(and related) ideals. This last includes the circle of problems around the
existence of vector bundles of low rank on projective spaces. His activity
will also include the development of fundamental algorithms in computational
algebraic geometry and their implementation in the Macaulay2 package
written by Grayson and Stilllman. By far the largest portion of the project
budget is devoted to the support of graduate students. This and the computational
tools produced by the project will broaden its impact.

Algebraic geometry deals with geometric forms defined by
simple equations (polynomials). The subject is central in mathematics
because these forms include the fundamental examples in most disciplines
of mathhematics; and it is important in the applications of mathematics
because these forms provide the models most often used in representing
nature in equations or in the computer. Over the last 150 years the group of
techniques called commutative algebra has been developed to study and unify this
and problems arising in number theory. Much more recently it was realized that
an extension of commutative algebra into the noncommutative domain of
exterior algebras gives a fruitful new approach to some old problems in this
field. Independently, computers and algorithms became powerful enough to
help research in algebraic geometry. Eisenbud's proposed work has to do
with some of the most classical problems in algebraic geometry as well
as with new uses of exterior algebra and computation in this domain, and
he will also continue his work developing computational tools for others
to use. The largest part of his grant will be devoted to the support
of graduate students, whom he will train in these techniques and methods.